MATHOPOLIS - Mathematics Theme Exhibitry in the New Science Center of Connecticut

9453779 Jordon The Science Center of Connecticut will develop, evaluate, and install 57 mathematical exhibit activities in its new 160,000 sq. ft. exhibit facility. These activities will engage visitors in learning how math is an integral part of daily life and a necessary skill in many careers. Eight math topics will be treated: probability and statistics; relative scale; geometry; symmetry; math puzzles; chaos and fractals; numbers, measurements, and calculations; and estimations. The hands-on activities will range from involvement with low-tech to high- tech, computerized activities. The target audience is people nine and up and it will be available to the museums 500,000 annual visitors. The mathematics activities will be distributed throughout the museum and math will serve as a integrating theme for all the museum's exhibits. The topics are aligned with Connecticut s SSI program which focuses on applied mathematics in context of the science disciplines. Within the state, plans are taking shape to link with Connecticut Public Television to broadcast electronic field trips to the museum through Knowledge Network. Nationally, museum staff members will make presentations at both museum and mathematics education meetings to other museum professionals. The concept of thematic integration throughout the museum will be disseminated through the state and the nation. ***